EAGER: Automating Correctness Proofs of Transactionalized Data Structures

In multi-core computing, programmers must write concurrent code to obtain
performance, much harder than sequential code. Transactions are part of the
solution: they reduce concurrent reasoning to sequential reasoning. But
high-performance data structures require relaxed transactional memory
techniques like open nesting. This places a tricky correctness burden on the
programmer: identifying which operations on the data structure conflict
(cannot run in simultaneous transactions), and how to undo operations to back
out incomplete transactions.

The proposed solution is to specify what a data structure ought to do, and to
prove that the programmer's conflict and undo specifications are correct. The
project will complete a proof-of-concept tool to demonstrate the feasibility
of the approach.

The intellectual merit includes: a language for specifying data abstractions
as abstract models amenable to the proofs required; a way to describe
conflicts between operations on the data type, and undos; a tool to process
the descriptions and build proofs as satisfiability problems; and algorithms
to prove correctness of abstract locking procotols. The project will be more
successful than general program proving since it works with abstractions, not
implementations, and it deals with specific properties of interest. Future
work can address correctness of implementation.

The broader impact consists in assisting programmers in building safe
high-performance concurrent data structures for multi-core platforms. The
tools and libraries produced will be widely available. Helping solve the
multi-core software problem has huge implications for our economy and society.